Magnetic Gradiometer Using High Critical Temperature Superconductors and a Fluxgate Sensor

This research will seek the development of a new class of superconducting magnetic sensors utilizing high Tc copper oxide based superconductors. These sensors are expected to offer better performance than nonsuperconducting instruments, at a much lower cost than that of present low Tc instruments. They combine a superconducting pickup loop, together with non-superconducting fluxgate magnetometer. Potential applications are in geomagnetism, instruments, such as susceptometers, and biomagnetism. This technology can be applied to the implementation of SQUID based systems, if high Tc SQUID's become practical.